Electron Delocalization in Linear Heterotrimetallic Compounds

Dr. John Berry of the University of Wisconsin–Madison will design and synthesize new molecules containing chains of directly connected metal atoms that represent the smallest possible analogs of electrical wires. As conventional semiconductor technologies approach fundamental physical limits, scientists are increasingly exploring ways to control the movement of electrons at the molecular scale. The proposed research will investigate how the structures of metal-atom chains influence the transport of electrical charge and information through individual molecules, providing fundamental knowledge directly relevant to the NSF priority area of Semiconductors and Microelectronics, as well as future technologies in these areas. The research will provide interdisciplinary training for undergraduate and graduate students in synthesis, spectroscopy, crystallography, computational chemistry, and materials characterization. Collaborative work with other research groups will probe the fundamental ability of our newly synthesized metal atom chain compounds to transmit information. Dr. Berry and his research group will continue to engage in educational and outreach activities that communicate scientific discoveries to broad audiences and encourage participation in science.

The project will establish new synthetic methods for the preparation of extended metal atom chains and heterometallic extended metal atom chains designed to function as molecular-scale electronic components. New ligand systems, linking groups, and metal atom combinations will be developed to systematically tune electron delocalization and charge transport properties. Advanced spectroscopic methods, single-molecule conductance measurements, magnetic characterization, crystallography, and quantum chemical calculations will be used to determine how molecular and electronic structure influence electronic communication through metal atom chains. The resulting compounds will enable systematic investigations of charge transport, metal-to-metal electron transfer, frontier orbital engineering, and molecular rectification. These studies will provide fundamental insights into the mechanisms governing electron transport through molecular wires and will establish design principles for future molecule-based electronic materials and devices.